Blurring Boundaries Over Time: A Longitudinal Study of AI, Metacognitive Regulation, and Responsibility in Engineering Problem Solving

Artificial intelligence (AI) tools are rapidly transforming how undergraduate students learn, solve problems, and make decisions in educational and professional settings. On one hand, AI systems are increasingly able to generate solutions and explanations, and to offer students new opportunities to enhance their learning through reflection, exploration of their ideas, and a deeper understanding of technical content. On the other hand, students' use of these tools may also weaken their independent problem-solving abilities and decrease their accountability for decisions they have made. Such decreased accountability is a threat to the values of the engineering profession. This project will explore the ways that AI use in engineering education is changing the professional formation of engineers considering engineering students' abilities to regulate their own learning, exercise sound judgment, and take responsibility for complex decisions. Researchers will explore how undergraduate engineering students learn to balance human judgment with AI assistance over time, exploring how students develop trust in AI tools, determine when to rely on or challenge AI-generated outputs, and maintain responsibility for decisions in AI-supported problem-solving contexts. The project will generate evidence-based guidelines and policy recommendations to support the responsible integration of AI tools into engineering education to strengthen students’ metacognitive awareness, ethical reasoning, and problem-solving autonomy. These outcomes will help educators, curriculum developers, and policymakers prepare engineers who can work effectively and responsibly with intelligent technologies. By modeling how students develop judgment, accountability, and cognitive flexibility in AI-augmented learning environments, the project will help prepare a technologically skilled and ethically grounded engineering workforce capable of addressing complex societal challenges, supporting the national interest and NSF's mission.

This project examines engineering students’ use of AI learning tools over their second year through their fourth academic years, as they transition from foundational coursework to complex capstone design experiences. Researchers will study: (1) how AI use supports or hinders students’ metacognitive regulation (including planning, monitoring, and reflection) during both routine and ill-structured engineering tasks; (2) how students’ perceptions of trust, control, and risk change over time and influence their engagement with AI tools; and (3) how increasing the complexity of tasks shapes students’ attribution of responsibility and agency between themselves and AI systems. The project will use a two-stage sequential mixed-methods longitudinal design. In Stage 1, about 100–150 undergraduate engineering students will complete the revised Physics Metacognition Inventory. During their second, third, and fourth academic years, they will then complete open-ended surveys on self-regulated learning across different types of engineering problems. In Stage 2, researchers will interview an intentional and small subsample of students during these academic years, and adding senior year, to understand how students' perceptions, decision-making processes, and regulatory behaviors have changed over time. Researchers will analyze data from both stages to develop a longitudinal model of student–AI interaction. This model will explain how students' metacognitive regulation, trust calibration, and responsibility attribution develop over time and as they engage with AI tools. The project will share its results through open-access publications, workshops, and instructional resources that translate research insights into practical strategies for engineering instructors to integrate AI responsibly into the education of undergraduate engineers.